Investigation of Stress and TKE Profiles in the Convective Boundary Layer Using Wind and Thermodynamic Retrievals from Single-Doppler Lidar Data

This project will adapt for application to Doppler lidar the techniques of four-dimensional data assimilation that have been developed for Doppler radar. Lidar offers the advantages of higher spatial resolution than possible with radar and also greater precision in velocity measurement. The goal is to construct high-resolution maps of the horizontal pattern of the wind in the atmospheric boundary layer within a range of several kilometers from the lidar. The instrument to be used in the experiments is the new high-resolution Doppler lidar (HRDL) developed at the Environmental Technology Laboratory of NOAA; the analysis method is the algorithm for wind and temperature retrieval developed at NCAR. Collaborating with Dr. Newsom will be Dr. Robert Banta of ETL and Dr. Juanzhen Sun of NCAR. As part of the project, the lidar will be operated during the CASES-99 boundary-layer project of October 1999. The observations will provide detailed data on airflow for application to studies of turbulence and eddy transports in the boundary layer and to the initialization and verification of large eddy simulations.